The Anchoring Problem in Surface Lightness Perception

This research is part of a broad effort to determine the means by which the human visual system processes the pattern of light falling on the retina, in order to determine the white, gray or black level of surfaces within a person's field of view. It is generally accepted that perceived surface gray levels are based on relative light intensities extracted from intensity gradients in the retinal image, but little is known about how these relative intensities are anchored, that is, processed to yield the specific shades of gray that we see. Strictly speaking, relative intensities provide information only about relative shades of gray. Absolute shades of gray can be derived only with the addition of an anchoring rule. For instance, in many scenes the visual system automatically treats the highest intensity as white. This can be demonstrated under the simplest conditions by placing an observer's head inside a large dome, half of the interior of which is painted black and half of which is painted gray. The gray part will appear white and the black part will appear gray, consistent with the highest-intensity-as-white rule. However, if an observer's head is placed within a uniformly painted black dome containing a white disk at its center, the black dome appears white and the disk appears luminous. This would follow from a rule by which white is assigned to the surrounding region, not to the highest intensity. In this research, human observers will be placed in a variety of visual environments, chosen to distinguish different potential anchoring rules. These will include simple patterns on large plastic domes that completely surround the viewer, more complex lab displays, computer simulated displays, and on-site natural scenes. Analysis of how the anchoring rules change as the visual field becomes increasingly complex may well fill an important gap in the modelling of surface color perception.